Computational Algorithms for Model Reduction of Complex Flows

The investigators will study improved computational algorithms for
model reduction of complex fluid flows. This research will have two
main thrusts, new closure models and a parametric modeling framework.
The investigators will investigate closure for models that are based on
the proper orthogonal decomposition. This component of the research
will leverage current developments in large eddy simulation along with
two-level algorithms for efficient computational implementation. The
fact that the closure models follow from both mathematical and physical
arguments will allow for a methodology that generalizes to physical
settings other than fluid flow. A new globalization methodology that
combines more accurate local models with an interpolation framework
to evaluate the models in parameter space will also be studied. The
local model improvements are provided using flow sensitivity analysis
and basis functions are constructed using a multidimensional Hermite
interpolation method. The investigators will emphasize problems in
geophysical fluid dynamics as well as flows with free convection.

This research will expand the applicability of computationally
efficient simulations to a wider class of fluid flows. The availability
of dramatically faster simulations is important to many engineering
applications including optimization and control of fluid flows, data
assimilation and uncertainty quantification. Therefore, the research
conducted in this project has direct application to a wide range of
problems that include data assimilation in climate and weather modeling
as well as simulation, optimization, and control of energy efficient buildings.